MRI: Acquisition of Analytical Tools for Imaging and Spectroscopy of Nanoscale Structures and Systems

1. PROJECT SUMMARY
We request funds to acquire a scanning electron microscope that will be capable of high-resolution
electron imaging and cathodoluminescence spectroscopy and imaging (CL) with 1 nm
resolution. The proposed instrument will be located in the cleanroom (Class 100) in the Micro
and Nanotechnology Laboratory at the University of Illinois at Urbana-Champaign. The
Laboratory is an interdisciplinary research user facility that houses advanced equipment for
materials and device processing. The laboratory has been very successful in facilitating cross-disciplinary
research and collaborations. Over 40 faculty, 20 postdoctoral fellows, 200 graduate
students, and many undergraduates have access to the laboratory. The users span across various
disciplines and departments on campus. The user list is steadily growing as we facilitate
discussions between various groups on the versatility of nanotechnology. Personnel from
neighboring academic institutions are users of the laboratory also.
The availability of the proposed SEM+CL system is critical to many research programs active at
the University of Illinois. Three illustrative examples of these research programs are described in
detail. These are:
Nanoscale Pattern Formation in Soft Materials (John Rogers and Ilesanmi Adesida)
Nanophotonics: Quantum Dots and Photonic Crystals (James Coleman and Kent
Choquette)

Silicon Bionanotechnology (Gregory Timp)
Various other projects make use of the facilities in the laboratory and among these are the
projects that have recently being started under the newly awarded NSF Center for Nano-Chemical-
Electrical-Mechanical Manufacturing Systems (Nano-CEMMS) at the University of
Illinois. The proposed research instrumentation is vital to these projects since they involve
fabrication at length scale less than 20 nm.
The intellectual merit of this proposal is in the new science and innovations that will be
facilitated. The proposed instrumentation will enable imaging and spectroscopy at the nano-regime;
understanding phenomena in organic and inorganic structures and systems at this scale
will open a vista to new applications. The proposed instrumentation will facilitate collaborations
across various disciplines and the research will lead wide-ranging applications in medicine, food,
environment and electronics.
For the broader impact, the proposed instrument will see significant use in
graduate/undergraduate research and education programs. Minority and under-represented
students will be recruited through various mechanisms involving our campus-wide Summer
Research Opportunity Program (SROP) and through our collaborative programs with minority
serving universities in Centers such as the Nano-CEMMS. Faculty from these schools will have
access to the laboratory through these Centers also. Programs for k-12 teachers to conduct
summer research in the laboratory with access to the research instrumentation is in place. Self-operation
of the equipment by all qualified researchers regardless of institutional/departmental
affiliations or source of funding is encouraged so as to enhance their education. With the
availability of the proposed instrumentation, we envisage an increase in usage by and
collaborations with industry.
The total estimated cost of acquiring the proposed instrument is $688,338. Of this amount, we are
requesting $481,837 from the National Science Foundation. The University of Illinois will
provide cost sharing of $206,501 (30.0 %) of the total cost of the instrument.